RUI: Classification of quantum dynamical systems

The theory of operator algebras originated in the 1930s with the
efforts of J. von Neumann and others to develop rigorous mathematical
models of quantum mechanical systems. A fundamental precept of this
theory is that the time evolution of such a mathematical model is
prescribed by a one-parameter group of automorphisms. A more general
picture is obtained if one considers evolutions of systems that can move
forward but not necessarily backward in time. This notion leads to the
study of one-parameter semigroups of endomorphisms, as opposed to (time
reversible) one-parameter groups of automorphisms. Price hopes to
continue his work with two leaders in the field, Alexis Alevras and
Robert T. Powers, on classifying families of semigroups of endomorphisms
that act on the operator algebras of all bounded operator on a Hilbert
space.
Price also plans to continue his study of endomorphisms on the
operator algebra called the hyperfinite II_1 factor. The hyperfinite
II_1 algebra R is of fundamental importance in the study of operator
algebras and is itself related to certain mathematical models of spin
systems. Previously he has used number-theoretic ideas to arrive at a
complete classification of the family of endomorphisms on this algebra
known as binary shifts. His current work in this area is focused on
obtaining a complete classification of all endomorphisms on R whose
image is maximal in R. This work uses ideas from combinatorics and
linear algebra as well as number theory. The linear algebraic and
combinatoric aspects of this study are expected to lead to some research
problems that are accessible to gifted undergraduate students. Price
proposes to continue working with mathematics majors who are interested
in honors projects related to this work.